SBIR Phase I: Enterprise Economic Knowledge Modeling For Data-Driven Offer Design

This Small Business Innovation Research (SBIR) Phase I project applies Infolenz' proprietary model-reduction technology to the development of a data-driven economic framework for supporting a firm's offer design. The objectives of the project are: 1) development of a modeling methodology capable of handling the complexity of enterprise transaction data, 2) development of a robust integrated offer design methodology, 3) prototyping the methods in software, and 4) applying them to actual client data.

The resulting commercial application emerges in a tool that automatically integrates the strategic decisions of business users with the economic information gleaned from transaction data to design optimal offers. The proprietary model-reduction technique of the proposer represents a missing link that can now support the development of a practical theory of robust modeling and control of these complex economic systems that is truly data-driven.